U.S.-Czechoslovak Joint Fund Research on Energetic ParticlesInside and Outside the Magnetosphere

This U.S.-Czechoslovakia Joint Fund Research on "Energetic Particles Inside and Outside the Magnetosphere" is between Dr. Karel Kudela of the Institute of Experimental Physics, Slovak Academy of Sciences, and Drs. David Sibeck and A.T.Y. Lui of the Applied Physics Laboratory, Johns Hopkins University. The Czechoslovak Institute of Experimental Physics ıIEP! will prepare measurements of energetic particles in space on the high apogee satellites of the Prognoz type in the frame of international space physics projects. IEP has measurements from Prognoz-8 and 10 satellites and it is preparing the devices and the program of measurements for the satellites Interball and Relict-2. The Johns Hopkins University participants, very experienced in the study of the magnetosphere, will provide the energetic particle data from the existing satellites IMP, CCE, IRM and the GEOTAIL project now in preparation. The researchers will (1) compare IMP-8 and CCE particle data with those of Prognoz-10 (for 1992 and partly 1993); and (2) compare measurements of energetic particles in GEOTAIL and on Interball (1993 and 1994). The results should contribute to understanding dynamic processes in the magnetosphere of the Earth and beyond. This research in experimental physics fulfills the program objective of advancing science by enabling leading experts in the United States and Czechoslovakia to combine complementary talents and pool research resources in areas of strong mutual interest and competence.